Numerical Methods for Layered Ocean Models

This project is concerned with the numerical solution of partial
differential equations, as applied to layered models of ocean
circulation. Particular issues that are addressed include the
following. (1) Develop numerical methods for applying the spatial
``B-grid'' to layered models with vanishing layers, and compare this
grid to the ``C-grid'' in such situations. Each of these grids is a
staggered grid for which the mass variables and velocity components are
defined at different locations. Presently, the B-grid is widely used
in z-coordinate models, whereas layered models more typically use the
C-grid. Of particular interest in the present project are behavior
near variable bottom topography and the possible generation of grid
noise. These issues have interfered with previous attempts to use the
B-grid with layered models, but the B-grid nevertheless has attractive
properties that warrant consideration. (2) Compare different
formulations of the momentum equation for numerical discretization, and
compare different advection methods for solving the equations for mass
and momentum. One issue of interest is the nature of the nonlinear
interactions within the discrete system. The choice of numerical
scheme is also influenced by the need to transport multiple scalar
fields simultaneously.

The overall purpose of this work is to improve the algorithms that are
used in computer simulations of ocean circulation. The ocean plays a
crucial role in the global climate system, and a better understanding
of that system relies in part on numerical simulations of the ocean's
circulation over long periods of time. The investigator has developed
an improved time-stepping method and related algorithms, and the
present project represents further work towards the goal of improving
the accuracy, efficiency, and reliability of the algorithms that are
used in numerical models of ocean circulation. The investigator has
extensive contacts with practicing ocean modelers who provide valuable
insights to help guide this research.